Deep Western-Boundary Currents in the Southwestern Pacific Ocean

This proposal is to deploy a suite of current meter moorings in the Pacific Ocean near New Zealand to measure the influx of deep waters into the Pacific Basin. The meters will be recovered after two years. In association with the mooring, hydrographic and tracer data will be collected. The work is coordinated with proposals by Nowlin (8917338) and Warren (9002708) and the New Zealand Oceanographic Institution. It is a component of the World Ocean Circulation Experiment (WOCE).